Mathematical Sciences: Research Equipment

This is a grant under the Scientific Computing Research Equipment for the Mathematical Sciences program of the Division of Mathematical Sciences. It is for the purchase of special purpose equipment dedicated to the support of research in the mathematical sciences. In general, this equipment is required by several research projects, and would be difficult to justify for one project alone. Support from the National Science Foundation is coupled with discounts and contributions from manufacturers, and with substantial cost-sharing from the institution submitting the proposal. This is an instance of university, industrial, and government cooperation in the support of basic research in the mathematical sciences. The equipment in this project is to be used for the following projects: Symbolic Computations for the Variational Bicomplex; Local Grid Curving Multilevel Techniques; Efficiency and Feasibility Studies of best Approximation Algorithms; Numerical Simulation of Rotating Spiral Waves in Excitable Media; Implementation Issues for the Karmarkar Algorithm; Least-change Secant Update Methods for Parameter-dependent Equations; and Fast Algorithms for Cluster Analysis.